Third Conference on Faint Blue Stars at Union College, Schenectady, New York on October 14-17, 1996

95-28524 Philip, A. G. Davis Dr. Philip is chairman of the Scientific Organizing Committee for the Third Conference on Faint Blue Stars to be held October 14- 17, 1996 at Union College in Schenectady, NY. This award will provide mainly travel and subsistence for participants, as well as some support for the publication to come from the meeting. ***